Synthesis and Accumulation of Chloroplast Proteins During Temperature-Induced "Bleaching" in Euglena Gracilis

The objective of this project is to develop a research proposal on "The Synthesis and Accumulation of Chloroplast Proteins During Temperature-Induced Bleaching in Euglena gracilis." The planning phase of the research will involve documentation of changes in the kinds of chloroplast proteins that are being synthesized during heat-bleaching as the transformation of the chloroplast unfolds. Support of this project will allow a well-trained and promising biologist to complete the planning and development of a regular proposal. The planning activities, if successful, will significantly enhance the potential of the investigator to compete for regular research support.